"Parasol: A Laboratory for Parallel Software Technology"

This project is centered around the creation of a parallel software laboratory, called PARASOL. This facility is intended to support a variety of projects investigating both the fundamental nature of parallel computing and its application to problems of importance in software engineering and in scientific computing. The award will aid in the establishment of this software laboratory through provision of support for a tightly-coupled multiprocessor and a number of workstations along with support for maintenance costs, support staff and related costs. The research builds on work conducted under a previous Coordinated Experimental Research (CER) grant and will extend the earlier contributions, as well as providing for expansion in new directions. Significant results are expected in the very important areas of (1) the fundamental nature of parallel computing and (2) applications of parallel computing to problems in scientific computing and software engineering.